Interactions Between Lineage and Environmental Factors in the Developing Optic Tectum

This Research Planning grant will free Dr. Linda S. Ross from teaching in order for her to obtain data necessary for establishing an independent research program. The issue of the contributions played by information obtained from intrinsic genetic information and from the environment in determining cell fate will be studied by following the differentiation of identified cells in the visual cortex of the normal and experimentally manipulated, transparent zebrafish embryo. These studies will form a foundation for future studies of dynamic analyses of cellular interactions and lineage relationships in the developing visual system.